Assessing the Impact of Relevant Examples in Assessments and Lessons in Biology Curricula

This project aims to serve the national interest by identifying critical aspects of college-level biology curricula that inspire student motivation, promote understanding, and ultimately lead to retention in biology disciplines. Specifically, by incorporating examples into biology content that are relevant to undergraduate students’ lives, instructors have the opportunity turn disengaging curricula into engaging ones. This Level 1 Engaged Student Learning project aims to describe the ways in which biology instructors and students notice and judge relevant examples in biology course content, assess the impact of incorporating relevant examples on student performance and motivation-related outcomes, and assess the extent to which relevant examples are included in assessments and how undergraduate students respond to and reason through these questions. These insights will provide educators with curricular resources and will provide researchers with foundational knowledge in the extent and impacts of relevant biology curricula. Ultimately, introducing content embedded in relevant examples may be a key step toward retaining STEM-interested and capable students, thus maintaining the U.S. as a global leader in science and technology.

To accomplish these goals, the project plans to begin with a pair of studies consisting of in-depth interviews with undergraduate biology instructors, as well as descriptive online surveys and follow-up interviews with students. These data combined will elucidate variation in undergraduate and instructor noticing of content embedded in relevant examples, based on the degree of integration or the topic. The project plans to address the second goal through a randomized controlled trial, using in-class worksheets and pre-post testing, in several sections of introductory biology courses to test the causal effect of lessons with relevant examples on student learning and affect. Finally, through purposeful national sampling, the project plans to assess the extent to which the content embedded in relevant examples appears on assessments, followed up by analyzing student answers to questions that include relevant examples and their reflections on these exams. The NSF IUSE: EDU Program supports research and development projects to improve the effectiveness of STEM education for all students. Through the Engaged Student Learning track, the program supports the creation, exploration, and implementation of promising practices and tools.